Low-Latitude Ionospheric Research at Jicamarca

This research pertains to theory and observation of equatorial plasma irregularities and equatorial aeronomy. The PI (and one student) will make several sets of short-term observations with the Jicamarca radar, following up with long-term observations using JULIA. Using the PI's coherent scatter radar imaging technique at Jicamarca, the PI will assess and evaluate a number of breaking theories of equatorial F-region plasma irregularities, like why large-scale plasma depletions bifurcate, what coherent scatter Doppler spectra signify, and how shear flow affects the evolution of bottomside spread F waves. The PI will devote another portion of this project to continuing operations of the JULIA radar for E and F region plasma irregularity studies. JULIA data has shown: (1) gradient drift waves in the electrojet are sometimes modulated by tides propagating into the lower thermosphere, (2) evidence of storm-time effects on equatorial electrodynamics and irregularity generation, and (3) F-region irregularities frequency emerge in the early morning, contrary to conventional wisdom. The PI will develop new analytic theories to more precisely account for these phenomena. Finally, he will develop a new mode for incoherent scatter measurements, incorporating an alternating phase-coded pulse for making for sensitive temperature and composition experiment in the topside region.